STTR Phase I: Steroid eluting biodegradable implant

The broader impact/commercial potential of this Small Business Technology Transfer (STTR) Phase I project is a novel implantable material and manufactured platform. The proposed device will facilitate extended release of steroids. This project advances materials and manufacturing methods to create a novel drug delivery platform offering mechanical structural support that is also bioabsorbable.

This Small Business Technology Transfer (STTR) Phase I project will develop steroid-eluting dissolvable implants. The implant utilizes Hot Melt Extrusion (HME) to develop a prototype, which includes the design and engineering of procedural tools needed to properly place the device. Prototypes will be developed, then implanted in suitable models. The prototypes will be refined and fabricated using mixed dissolvable polymers with powdered steroids, produced at a low enough temperature to avoid steroid degradation. The formulation of dissolvable polymer will be further defined and validated for bench performance. The in vivo performance of the devices will then be characterized, and in vitro elution data correlated with in vivo absorption for meeting regulatory performance requirements. The prototypes will validate elution and biostability and degradation for developing implantable device prototypes at a future stage.